Development of Senior Laboratory for New Engineering Physics Program

9351009 Malaviya The purpose of this project is to develop a set of innovative experimental exercises for a laboratory course in a new engineering physics program. The program offers a valuable strategic vehicle for students to pursue education and research in areas cutting across traditional disciplinary lines. The lab course is an important element in the new baccalaureate engineering physics curriculum. The equipment requested herein will be used to develop experiments in such areas as computer interfacing, electromagnetic field behavior and imaging, laser holography and other laser optics applications, fluid systems behavior, particle interactions with fields and matter, etc. The new experiments will involve state-of-the-art techniques with direct relevance to real-life experiences in the high tech R & D enterprise and should considerably enhance the scope and diversity of the students' laboratory experience. Results of the project will be adequately documented and widely disseminated for use by other universities and colleges for lab and related course work in their science and engineering curricula. ***